Studies of Partial Melting Associated With Mantle Flow at Passive Margins and Mid-Ocean Ridges

This is a proposal to carry out numerical experiments related to shallow convection and partial melting in conjunction with the formation of passive margins and mid-ocean ridges. One set of calculations involves the attempt to explain the large volumes of basalt produced at some margins in which there is a sharp transition between oceanic and continental crust. The second set of calculations concerns the interaction of small scale convection and mid-ocean ridge crests. It addresses such questions as when does small scale convection initiate? Is it responsible for ridge segmentation? What happens if a ridge crest overruns an existing small scale convection pattern? The problems addressed by this proposal are of considerable to the geological community. The models should provide important constraints on mid-ocean ridge processes. The results of the models can be tested by other geological data.